DISSERTATION RESEARCH: Survival of the Gutsiest: A Study on Function and Quality of Signals Given to an Incoming Predator by Anolis Lizards

The evolution of communication is a central theme in behavioral biology.
Historically, research has focused on social interactions as the selective
force for the evolution of communication, however interactions with members
of other species can also be a selective force in the evolution of signals.
This project proposes to expand the PI's understanding of the evolution of
signals by investigating the function and the quality of the signals
performed by three species of Anolis lizards during predator-prey
interactions under natural conditions. Possibilities include that they are
either trying to misdirect the predators' attention or trying to deter the
predators' attack. Particularly interesting is the observation that
differences among species in the use of conspicuous signals against
predators may be correlated with differences among species in physiological
capacity. These questions will be addressed by combining observations of
the lizards' responses to predators with laboratory measures of lizards'
physiological capacity.

A major controversy regarding the evolution of signals, including those
used by the prey during predator-prey interactions, is the nature of the
message encoded in the signals. Is the prey notifying the predator that it
has been detected, or is it producing more specific information about its
escape abilities? Surprisingly, no empirical data have addressed this
controversy. The results of this project promise to add to our
understanding of the evolution and quality of signals performed during
predator-prey interactions. Furthermore, because the signals that are used
during predation episodes are also used socially, these results can also
help us to understand the evolution and quality of signals that are used
during social interactions.